Shipboard Technician Support

9703794 Knox This award to University of California at San Diego provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using four research vessels: R/V Revelle, R/V Melville, R/V New Horizon and R/V Sproul; technical support for these vessels is provided by Scripps Institution of Oceanography. All four vessels are operated as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of ocean science research throughout the Pacific, Indian and Southern Oceans in 1997. ***